A Computational Approach to Engineering Idea Generation

It is proposed to test the hypothesis that physical descriptions of new devices can be synthesised from knowledge about the physical and functional characteristics of analogous devices. The approach builds upon concepts developed in the area of machine learning. Research on learning to categorize objects by knowing a physical description and inferring a functional definition has provided the insight to use examples to learn a physical description from a functional definition. This research will concentrate on generating solutions to defined problems in the mechanical design domain. Progress in this area could make a significant contribution to understanding conceptual design.